Identifying a Framework for University-sponsored ISE -- A Planning Grant

Colorado State University proposes to identify the framework and infrastructure needed for the university's main campus and pueblo campus to deliver informal science education to school aged youth and their families with a particular focus on Hispanic families. The two-year planning process will include workshops, surveys, focus groups and interviews with key partners in the community that provide programming and advocacy for the targeted audience of school age children and Hispanic families in particular. An advisory board and core team of planners will use data gathered from this process to inform the development of the infrastructure model and to identify STEM concepts and formats, compelling University resources and faculty Professional Development needs in this University/Community partnership.

The results of this planning initiative will provide tools, infrastructural plans and community awareness that will support future opportunities for delivering programs to specific school age audiences and developing the capacity of the faculty/staff to work with new audiences. These future efforts will support the ultimate goal of increasing school age children's participation in ISE and ultimately the numbers of Hispanic youth who go on to participate in STEM careers.